Research Internships for Minority Scholars

This summer research experience program for minority undergraduate students will provide funds for six weeks, for five Morgan State University students to participate in a summer research internship at Rensselaer Polytechnic Institute.